Mechanisms and consequences of resource allocation in non-growing bacteria

This research investigates how bacteria cope with starvation conditions; specifically, how they degrade proteins to generate energy and build of new proteins to extend their survival during starvation. Knowledge gained from this study will expand abilities for metabolic engineering, to allow new ways to manipulate non-growing bacteria to turn them into efficient, long-living bio-factories. Additionally, understanding factors affecting the survival of non-growing cells will lead to insights into little-known areas of bacterial weaknesses that could inspire the development of new antibacterial strategies to eradicate diseases caused by bacteria. This project will also attempt to demystify systems biology research, from a tech-heavy, math-centric specialty to a simple, intuitive enterprise based on direct observations. This simplification will allow us to bring this cutting-edge research to undergraduates who are experiencing research for the first time, bypassing the fear of difficult math and the burden of acquiring extensive molecular techniques. The project will further engage graduate students in community outreach activities, by giving them opportunities to teach in a local elementary school. This activity will benefit both the schoolchildren and our graduate students, in giving the latter the experience to work with children and gain awareness of their educational needs, at early stages of the graduate students’ own professional careers.

This research will extend a physiological, resource-centric approach to describe and predict bacterial gene expression during non-exponential growth, to study gene expression, metabolism, and survival by E. coli after nutrient depletion. The project will test the hypothesis that global protein degradation (akin to autophagy by eukaryotic cells) is the main supplier of both amino acids and energy for protein synthesis and cell maintenance during starvation. The research will establish key mechanistic elements of protein degradation in starving E. coli, elucidate the specificity and control of this global proteolytic process, and manipulate strains and conditions to establish long-living, non-growing bacteria as a chassis for the efficient synthesis of useful metabolites. The intellectual merit of this research lies in the combination of molecular studies with quantitative, physiological characterization for non-growing cells, coupled to realistic applications in bio-production: First, this study will provide a comprehensive framework to characterize and conceptualize gene expression in starving cells, which differs substantially from common notions of gene expression in growing cells. Second, this study will elucidate novel mechanistic aspects of global protein degradation in non-growing cells, a subject of molecular biology that was thought to be understood decades ago based on studies solely in growing cells. Third, this study will establish long-living, metabolically active non-growing cells as model systems to study molecular and physiological characteristics in stationary phase. The project aligns with BIO goals to understand cellular function and to support and expand biosynthetic industrial applications.